Mada Maagarishtauo Awa Hee Aadsa Maa Aru Maa Giguckiigash STEM Teachers of Excellence Education Program (STEEP)

The Mada Maagarishtauo Awa Hee Aadsa Maa Aru Maa Giguckiigash (The ones that teach our children how everything on this earth works) STEM Teachers of Excellence Education Program (STEEP) will establish an accredited baccalaureate elementary teacher education program that is standards-based and uses constructivist methods that focus on relevant science and math based on identified needs. The development of a new elementary education program of study that is standards-based and uses constructivist methods that focuses on relevant science and math based on identified needs will represent an innovative model being done for the first time in a tribal college setting. The incorporation of Mandan, Hidatsa and Arikara cultural values with math and science concepts across the elementary teacher education curriculum will enhance the chance for elementary school age children to become grounded in STEM fields because of their teachers.